Gordon Research Conference on Solar Plasma Physics and MHD Processes; Plymouth State College, New Hampshire; August 5-9, 1991

This conference is concerned with solar plasma and studies of MHD processes. It will be conducted in Plymouth, New Hampshire from August 4-9, 1991. ***